CISE Educational Infrastructure: Integrating Object- Oriented Programming and Formal Methods into the C.S. Curriculum

This award is for the development of educational materials for early introduction into the computer science curriculum of formal methods and object-oriented programming. Material on operational, denotational, and logical semantics will be developed, as well as laboratory exercises and related materials for teaching object-oriented programming and design. Colgate University plans to develop a network of computer science educators from a wide variety of institutions who will contribute to this project. Curriculum materials will be disseminated through Internet, and presented at workshops, and at other educational and professional meetings. Colgate University plans to develop materials in object- oriented programming and in formal methods for introduction into intermediate-level computer science courses. Work on object-oriented programming and design will focus on the development of laboratory materials for several hardware platforms; work on formal methods will focus on two major areas: program verification and operations, denotational and logical semantic. The results of the curriculum and materials development will be disseminated through Internet, and will be presented at workshops, and educational and professional meetings.